Analysis of Optimal Controls for Biomedical Models of Cancer and HIV

0205093
Ledzewicz

In the project, optimal control problems will be investigated which arise as
mathematical models for biomedical systems in the chemotherapy of
diseases which have a strong cell proliferation aspect such as cancer or
AIDS. Three directions of research will be pursued: the analysis of models
in cancer chemotherapy, an analysis of models for HIV-infection and anti-
viral treatment of AIDS, and the design and analysis of a general
mathematical framework which combines common features of both cancer
and HIV models. The investigators will use their previous experience
working on cancer chemotherapy models and apply new tools based on
the method of characteristics and high-order conditions for optimality. In
compartmental models for cancer chemotherapy the cell-cycle is
controlled by clustering its phases into compartments and using phase
specific cytostatic killing and blocking agents. The goal is to maximize the
number of cancer cells that the cytostatic agent in the drug kills while
keeping the toxicity to the normal tissue acceptable. In this project a
synthesis of optimal controls for these models will be constructed.
Furthermore, more complex mathematical models that take into account
additional aspects such as evolving drug resistance or bone marrow
destruction will be analyzed. Due to the complexity of HIV infection,
mathematical models for AIDS have only recently been developed and
still are constantly being revised and updated taking new medical data into
account. With the main attention so far given to the form of the dynamics
that best models the interactions between the virus and the human immune
system under drug treatment, many of these models still have not been
formulated as optimal control problems. The investigators will analyze a
variety of these models in the framework of optimal control and compare
the solutions aiming at a design of optimal treatment protocols.

In the project, the investigators will consider mathematical models in the
chemotherapy of diseases that have a strong cell proliferation aspect such
a cancer or AIDS. These models will be analyzed as optimal control
problems with the drug dosage serving as control parameter with the goal
of maximizing the number of cancer cells killed by the drug in the case of
cancer (respectively maximizing the number of uninfected cells in the case
of chemotherapy for AIDS) while minimizing the harmful side effects and
cost of the chemotherapy. Although individually these problems are very
different in their specifics, they also have many aspects in common and
can be put into one general mathematical model that encompasses them
all. Thus, while on one side there is a need to consider these problems
separately to understand the implications for the underlying disease, on the
other side there are simplifications and insights to be gained by looking at
the general properties common to these models. This project will address
both directions. A biomedical interpretation of the conditions that optimal
controls satisfy will be given in terms understandable by biomedical
personnel and the conditions will be related to the underlying biological
situation. It is expected that the outcomes of this project will be of interest
to the medical community by giving some insights into the analysis of
existing chemotherapy protocols for cancer or HIV and possibly aid in the
design of new improved protocols. These results are particularly important
for HIV treatments which so far do not cure the disease, but only provide a
long-term maintenance program.